Conference Support for 2006 MRS Symposium: Nanostructured Probes for Molecular Bioimaging

Abstract

The integration of biomolecular engineering, nanotechnology, biomechanics, and biology is expected to produce major breakthroughs in life sciences and medicine. Due to the size-compatibility of nano-scale structures with proteins and nucleic acids, the creation and use of nano-probes provides unprecedented opportunities in achieving a fundamental understanding of biological processes, and drastic improvements in disease detection, therapy, and prevention. To help develop the nanobioengineering field, the PI and his colleagues organized a symposium, 'Nanostructured Probes for Molecular Bioimaging', for the Material Research Society (MRS) Spring 06 meeting in San Francisco, CA. The goals of this symposium are to bring together biologists, biochemists, bioengineers and biophysicists to showcase the recent development of nanostructured probes for, and their applications in molecular imaging for biological and biomedical studies, and to stimulate a greater interest among material scientists to work in this area. The outcome of this symposium includes an MRS Proceeding published online.